Implementation Proposal-MIE Program Phase II

The Sistema Universitario Ana G. Mendez (SUAGM) is comprised of three
institutions: Universidad Metropolitana (UMET); Universidad del Turabo (UT);
and the Colegio Universitario del Este (CUE). SUAGM presently enrolls 19,600
students and is the second largest private university on the Island. SUAGM
serves principally economically and educationally disadvantaged students.
In October 1995, UMET competed and won an NSF Model Institutions for
Excellence (MIE) Program Award. To date UMET has used the MIE program to
dramatically improve its educational infrastructure in science and
mathematics (S&M) and to increase the quantity and quality of minority
students who earn SEM baccalaureate degrees. This proposal sets forth a plan
for Phase II that will improve upon Phase I accomplishments, raise UMET to
the next level of capability, and begin the process of disseminating its
model to other institutions including UT and CUE.

The four "cornerstones" of the Phase I MIE are: (1) curriculum, instruction
and assessment; (2) faculty development; (3) student recruitment, retention,
and graduation; and (4) physical and administrative infrastructure. Phase II
will further improve each "cornerstone" of the MIE framework established
during 1995-1999 and build synergy across the "cornerstones" to ensure an
integrated and systemic improvement effort. During Phase II, UMET will
concentrate to a greater degree on bringing its increased SEM student body
through graduation and onto graduate school.

To improve curriculum, instruction, and assessment, UMET will increase the
effectiveness and efficiency of its 10 SEM academic programs and disseminate
the MIE curriculum development process to UT and CUE science departments and
other UMET departments, using institutional resources.

UMET will develop faculty by hiring additional faculty with advanced degrees
in selected areas; enhancing existing faculty<B9>s content knowledge in SEM
areas; delivering improved student centered instructional programs;
stimulating faculty research capability and involvement of students in
research; developing an improved infrastructure for proposal development,
improving its ability to assess faculty performance; and providing financial
support to faculty completing doctoral degrees.

To improve student recruitment, retention, and graduation, UMET will
develop a highly effective program for accelerating student learning,
critical thinking skills, and content knowledge; provide pre-college
students with a greater appreciation of the benefits of careers in S&M and
the skills needed to pursue S&M studies; and conduct a coordinated set of
activities to attract better prepared students and provide sufficient
academic support services to retain them through graduation. These
objectives will be achieved through a comprehensive Science Support Center
(SSC).

UMET will improve its physical infrastructure by better equipping the UMET
Science building; building a new science laboratory building with
institutional funds; and enhancing the computer networking capability of all
SEM faculty in SUAGM. To further improve the administrative infrastructure,
UMET will build on the policy changes that were developed during the initial
MIE period, continue the development of UMET and initiate a transformation
at both the UT and CUE campuses by extending the UMET MIE administrative
policy changes across the System.

The project is managed under the direction of Dr. Juan F. Arratia who
reports to the Chancellor of UMET.
support to faculty completing doctoral degrees.

To improve student recruitment, retention, and graduation, UMET will
develop a highly effective program for accelerating student learning,
critical thinking skills, and content knowledge; provide pre-college
students with a greater appreciation of the benefits of careers in S&M and
the skills needed to pursue S&M studies; and conduct a coordinated set of
activities to attract better prepared students and provide sufficient
academic support services to retain them through graduation. These
objectives will be achieved through a comprehensive Science Support Center
(SSC).

UMET will improve its physical infrastructure by better equipping the UMET
Science building; building a new science laboratory building with
institutional funds; and enhancing the computer networking capability of all
SEM faculty in SUAGM. To further improve the administrative infrastructure,
UMET will build on the policy changes that were developed during the initial
MIE period, continue the development of UMET and initiate a transformation
at both the UT and CUE campuses by extending the UMET MIE administrative
policy changes across the System.

The project is managed under the direction of Dr. Juan F. Arratia who
reports to the Chancellor of UMET.